Non-Negative Matrix and Tensor Approximations: Algorithms, Software and Applications

Title: Non-negative Matrix and Tensor Approximations: Algorithms, Software and Applications

Applications as diverse as data mining, chemometrics, and bioinformatics
lead to the need for analysis of co-occurrence and count data.
These data sets are intrinsically composed of non-negative numbers, and
often can be represented as multi-dimensional matrices. Analysis of such
data is a major contemporary scientific challenge.

This research studies approximations of non-negative matrices and
tensors that reveal an easily interpretable parts-based representation
of the data. Fast, numerical algorithms are developed that incorporate
state-of-the-art techniques from numerical optimization. A software
toolbox is made available to the public after being tested on
applications in web data mining, bioinformatics and computer vision.
An emphasis of the project is to train graduate and undergraduate
students in mathematics and computer science, and make the software
available via a public web site.